Flows Through Multiple Gaps with Applications to the Indonesian Throughflow

9503816 Nof In this project, the PIs will conduct an analytic study of oceanographic processes that occur within the Indonesian Archipelago. Particular focus will be on nonlinear dynamics of flow across a boundary containing multiple gaps, wave transmission through networks of basins, equatorial crossing, and baroclinic effects in the lee of sills. Simple experiments will be attempted to supplement the analytical calculations. ***